CI-P: The ICSI Metaphor Annotated Corpus

This CRI planning grant uses the theory of conceptual metaphor to plan
the creation of an on-line metaphor resource that covers multiple
types of language and corpora. Metaphor is pervasive in human language
and thought and is crucial for both linguistic expression and human
reasoning. Conventionalized as well as novel metaphorical expressions
can be routinely encountered in everyday life conversations, in
newspapers, and in many other text types including scientific,
technical, and literary writing.

The goal of this planning effort is to resolve issues related to
corpus selection and preparation, and to incorporate community wide
evaluative feedback in the iterative design and implementation of
metaphor annotations. Towards the end of the planning work, there will
be a workshop to evaluate the approach, to build support for the
corpus creation enterprise, and to establish a user community. This
corpus selection and metaphor annotation effort is also being
coordinated with the companion SGER effort underway (NSF IIS grant
0843275) that is exploring issues related to scalable metaphor
modeling and inference.

The multi-layer annotations will include conceptual relations and
metaphor domains, linguistic expressions and frame annotations of the
relevant lexical targets, and syntactic relations that obtain in the
annotated target text. The result will be the design of a
comprehensive, richly annotated resource of metaphoric languge.The
combination of this work, along with parallel efforts in semantic
analysis and inference should permit the development and testing of
large-scale systems capable of figurative language processing within a
few years.